GIG: Infrastructure Improvement for a Research Group for the Study of the Algebra and Geometric of Quantum Physics

9510375 Yetter A focus on mathematical problems arising from or related to quantum physics has become the over-riding theme of much of the mathematical research carried out in the Kansas State University Department of Mathematics. This project addresses the infrastructure needs of the group engaged in mathematical research in this area, specifically enabling the group to hire a postdoctoral research assistant whose presence will improve research productivity through the injection of fresh perspectives and ideas and the cementing ties between members of the group and providing for improvements to the computing environment available to the group.Research interests in the group range from very classical applications of mathematics to quantum theory--- solution of equations of Schroedinger type (L.V. KAPITANSKI), quantum scattering problems (both direct and inverse) (A.G. Ramm and K. VANINSKY), and continuum statistical mechanics (K. Vaninsky)---through general quantization problems (Y. SOIBELMAN) and non-commutative geometry (F. WU and G. Nagy) to recent developments relating algebra, topology and quantum field theory--- quantum groups (Z. LIN and Y. Soibelman), topological and conformal field theories (L. CRANE, Z. Lin, and D.N. YETTER), applications of gauge theory to differential topology (F. Miller), and sigma models (L.V. Kapitanski).(The first mention of each co-PI for the project is in upper-case.)